CSR-EHS: Workshop Student Support for ISORC 2006

This NSF award provides support to enable U.S. participation in ISORC 2006. ISORC, the 9th IEEE International Symposium on Object and component-oriented Real-time distributed Computing, will be held on April 24-26, 2006, in Gyeongju, Korea. The purpose of the award is to provide travel assistance for graduate students and academic researchers from American universities who are accepted as speakers in this international conference, thereby increasing US participation and extending interaction.